Spectrally pure, 2-5 micron wavelength laser diodes based on III-V type II misaligned superlattices

The proposal is to investigate the next generation of interband mid-wave-infrared (MWIR) lasers. The specific goal of this research is the realization of high performance, spectrally pure, antimonide MWIR diode lasers that can be incorporated into spectroscopic instruments for remote sensing and medical diagnostics in the 2-5 micron wavelength region. The efforts will include (1) the engineering of superlattice and quantum well lasers and (2) the development of processes and techniques for fabricating single-mode antimonide lasers.